A Proposal to Study the Electroweak Force via Neutrino Interactions and Hypernuclear Physics at CEBAF

9412771 Johnston Research will be carried out at LAMPF into the flavor changing probability for neutrinos produced in various pion decay modes. An active detector based on 200 tons of liquid scintillator will be used to detect reaction products following inverse beta-decay on protons in the scintillator. Limits set on the cross section for this and related processes will set new limits, improved by at least an order of magnitude over existing limits, on the neutrino mass differences between different flavor neutrinos. Research in electroproduction of hypernuclei will be carried out at CEBAF, focusing on the lambda(hyperon)-nucleon effective interaction. A specialized spectrometer will be developed for tagging the virtual photon which initiates the reaction. ***